Design of Reaction Catalysts Based on Fatty Acid Binding Protein

Dr. Mark D. Distefano, Chemistry Department, University of Minnesota - Twin Cities, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program of the Chemistry Division under a Faculty Early Career Advancement Award to design semi-synthetic enzymes which will catalyze regioselective transformations of organic molecules, to undertake course and curriculum development at the graduate and undergraduate level, and to engage in community outreach programs. By attaching a transition metal catalyst to a fatty acid binding protein and by introducing a thiazolium heterocycle into the interior of the same type of protein, catalysts for the regio- and stereo-selective oxidation of polyolefinic species and for enantioselective carbon-carbon bond forming reactions will be prepared. To obtain catalysts using proteins without covalent modification, cofactor binding domains will be introduced into the protein by mutagenesis or by fusion enzymes. Using current educational theory a large organic chemistry course and a graduate course in reaction mechanisms will be redesigned to increase the effectiveness and intellectual stimulation of these experiences. To communicate the excitement of science out-reach programs to local schools will be expanded. Many synthetic chemicals are made using processes that involve toxic materials and the disposal of the resulting waste products has created enormous environmental problems. One solution to these difficulties employs enzymes (protein based catalysts) to catalyze chemical reactions. The goal of this project is to prepare new enzymes which will accomplish important chemical transformations. Success in this project would lead to the ability to prepare semi-synthetic enzymes which are capable of performing very efficient transformations for which no natural enzymes are know. The educational activities are designed toward increasing student appreciation of chemistry and will involve school children to graduate students.